Hofstra Noyce Scholars Program

Two cohorts of eight junior mathematics majors each are being awarded two year scholarships of $20,000 annually while completing an undergraduate mathematics degree and meeting the requirements for New York State teacher certification in mathematics. The project focuses on how preparation in an inquiry-based and culturally relevant mathematics teaching and academic program can enhance teacher quality in high needs school districts. Formative and summative evaluation from an external evaluator guides the development of the program.

The extensive induction program for the new teachers is supported by the Westbury, Uniondale, Roosevelt, and Brentwood School Districts in cooperation with university faculty in both mathematics and mathematics education programs. This program provides Scholars with: (1) an in-depth summer institute; (2) a year long classroom experience; and (3) an extensive two-year induction program.